SBIR Phase I: Parallel-SHIFT: A Simulation Programming Language

This Small Business Innovation Research Phase I project from Meta-X proposes to design and implement a parallel version of the SHIFT languageto be run on multi-processor shared-memory computers. Multiple parallelization approaches will be designed, implemented, and tested.SHIFT, a special purpose object-oriented programming language with simulation semantics developed at UC Berkeley, offers the proper level of abstraction for characterizing complex systems described by finite state machines and differential equations. SHIFT specifications are compiled into C programs. When run these programs simulate the design specified in the SHIFT source programs. Due to the level of detail in object models, current SHIFT simulations are restricted to a small number of objects for timely simulation results. Hence, current implementation of SHIFT is commercially not viable. SHIFT is in use in a variety of academic applications including highway automation, autonomous submarines, chemical distillation column control, and air traffic management. SHIFT language syntax and semantics can be exploited to develop a parallel implementation whose performance can scale with the number of processors available on a given workstation. The resulting performance improvements that this project offers will make Parallel-SHIFT a commercially viable modeling, design, simulation, and evaluation tool for automotive, aerospace, process control, and manufacturing industries.